The Formation of the Continental Crust: Evidence from Siderophile and Chalcophile Trace Elements in Volcanic Arcs

The origin of the continental crust is fundamental to understanding the evolution of the Earth as a whole. Recent work has shown the bimodal behavior of certain siderophile and chalcophile mobile elements (e.g. Pb, As, Sb) in terms of their greater than expected enrichments in volcanic arcs and the continental crust, compared to their geochemical behavior during igneous fractionation. This project will extend our studies to additional elements (e.g. Pb, Zn, Cd, Sn, Hg, and Bi) in suites we have analyzed for other elements. Characterizing and quantifying the affected elements and their enrichments will allow a better understanding of the location and geochemical conditions under which the enrichments occurred, for example, ridge versus subduction zone environments. We will analyze new samples for our complete set of siderophile elements, from additional arcs and from samples that extend our across-arc data. The compositional data from the volcanic arcs from additional samples of the ancient continental crust will be important for improving estimates of the composition of the continental crust. The modelling efforts will use a more sophisticated transport model that will also allow evaluation of isotopic constraints.